Replacement of the Nuclear Physics Data Analysis Computer System

A computer upgrade for the University of Maryland Intermediate Energy Nuclear Physics Group will be carried out. This system will be used in (1) massive event-mode data replay and analysis, (2) state-of-the-art theoretical/phenomenological calculations including distorted wave calculation of scattering, knock-out, and absorption reactions for nucleons, pions and photons, and (3) Monte Carlo simulations of CEBAF, SLAC, and FNAL experiments for proposal generation. The current computer system is not adequate to meet the current and planned research objectives.